Introduction of Ion Chromatography into the Chemistry Laboratory Curriculum

This project will introduce undergraduate students at East Stroudsburg University to chromatographic techniques for efficient, simultaneous determination of ionic species. Students in instrumental analysis and environmental chemistry courses will learn techniques for the determination of anions such as chloride, fluoride, nitrite, nitrate, sulfate, and phosphate in parts-per-million quantities. The ion chromatography system will also be used by undergraduates in research projects which include investigating effects of acid rain, monitoring local potable water supplies, and studying the water chemistry of several lakes and streams in the Poconos.